SET CAREERS: Science, Engineering and Technology Careers Museum Exhibit

This proposal requests matching support to create a dynamic science, engineering, and technology careers museum exhibit--SET Careers, for distribution to science museums and technology centers. The exhibit kiosks with related career graphics surrounds, incorporate multimedia platforms, using MacIntosh authoring software to dreate information landscapes' computer motion programs like Quicktime, and Cd-1 or DVI videodisc technology. Yound museum visitors (teens and Preteens) will be invited to enter into an exciting interactive exploration of thirty self-narrated video profiles of people in science and engineering, try our animated/reality video simulations of a work experience in these fields, and obtain additional information from a database of over 200 more science and math-based professions. The videodisc profiles, database, and a personal interests component will also be developed in alternative media formats (video, audio, print, computer disc) for broad distribution to community and youth education networks, schools, and libraries. Specific emphasis in this project is being placed on reaching and attracting female, minority, and disabled youths.